Acquistion of a Nuclear Magnetic Resonance Spectrometer for Biogeochemical Research

9977015
Repeta
This Major Research Instrumentation award to Woods Hole Oceanographic Institution in Massachusetts provides a 400 MHz digital nuclear magnetic resonance spectrometer for biogeochemical research in ocean and environmental sciences. It will be used for a variety of research projects by investigators from WHOI and several nearby universities, including study of dissolved marine organic matter composition and cycling, and the role of organic nitrogen in stimulating harmful algal blooms in coastal areas heavily impacted by anthropogenically-derived nutrient inputs. The project is supported by the Division of Ocean Sciences at NSF. Woods Hole Oceanographic Institution will provide cost-share support for more 30% of total project costs.
***